Separation of Proteins Using Ligand Gradients

Successful uses of the recent and emerging developments in biotechnology and biochemical engineering require dependable and efficient techniques for separating valuable products such as proteins from process streams. Because of the deficiencies of the present separation methods, there is a critical need for novel techniques that are capable of singling out specific proteins (i.e., capable of high selectivity) and separating them at sufficiently high rates to make the overall process economical. An exploratory experimental research program is conducted to investigate the performance of a novel separation technique.